Tools for Success

This project is being conducted by faculty and staff at the Wolfson and Kendall Campuses of Miami Dade College in an effort to increase the number of STEM majors and graduates at the College. Tools for Success uses a combination of proven techniques such as learning communities, specialized advisement, technological tools, and mentoring to increase the graduation rates of students in STEM fields. Through this program, students enroll in four 1-credit courses designed to improve their success and persistence in STEM fields of study. STEM faculty mentor students through traditional means as well as through Podcasts. Student-to-student mentoring is also being accomplished by pairing second-year students with first-year students. Scholarships provide student incentives to matriculate to 4-year institutions and Science Forums expose students to scientists working in the field. Targeted recruitment efforts are being conducted aimed at incoming undecided community college students and at high schools with significant underrepresented populations.